Science Enrichment Education Program

The goal of the three-year Science Education Enrichment Program is to provide 720 Puerto Ricans, six to fourteen years of age, with exploratory learning opportunities to observe, judge, and value scientific experiences. The program will be administered by the Agricultural Extension Service of the University of Puerto Rico. The 4-H curriculum will be strengthened by incorporating interactive learning in six science components: Composting as a Means to Conserve the Environment: The Role of Soil and Water in Protecting Life; Food Discoveries: Starchy (Farinaceous) Vegetables: From Field to Market; Getting to Know about Insects; and Hurricanes and Earthquakes: Events Requiring Disaster Mitigation> Extension Specialists in the subject matter and a research scientist from the Experiment Station will supervise groups of 10-20 children at 63 sites in sessions lasting from six months to a year. Trained volunteers and teen leaders will also participate. A distinguished group of external advisors will serve on an Advisory Committee to provide recommendations on scientific accuracy and future development. Three implementation phases ate planned. In Phase I a draft of a unique Puerto Rican science curriculum model for the Extension Service will be prepared. The skills and knowledge of component directors will be enhanced through collaboration with local and mainland groups to leverage resources for special training on exploratory approaches to learning science. In Phase II the curriculum will be tested and refined. Resources will be mobilized for exploratory science activities. A pilot session will be held for 80 youth. During Phase III all components will be operational> Approximately 640 youth will participate in 58 science session. A dissemination plan will allow for the curriculum materials to be distributed to groups in Puerto Rico and the mainland. The current level of effort will be continued and plans will be made for expansion to other sites. Institutional commitments to the development of this project include an in-kind contribution amounting to approximately 22 percent of the total project amount. In addition to creating an interest in science, the outcomes of the program will seek to build self confidence in science exploration, promote critical thinking, and develop knowledge in youth about career options in the agricultural sciences.